Sustaining the Bering Sea Ecosystem: Community Driven Social Science Planning for the Bering Sea

ABSTRACT
OPP- 0451214

This project is to provide support for Dr. Ben Fitzhugh's participation in the ongoing effort to draft a social science plan for research on human-environmental dynamics in the Bering Sea. The funds will be utilized to support the drafting of the science plan, the vetting of the plan with the Arctic social science research community and the Bering Sea indigenous communities, and to integrate the draft social science plan with the existing Bering Sea Ecosystem Study (BEST) draft plan. The ultimate development of these two research plans is part of the broader Interagency program, SEARCH, which seeking to gain insight into the rapid environmental changes occurring in the Arctic.